Collaborative Proposal: RUI: An Automatic Telescope Shared for Stellar Research and the Training of Undergraduates

AST-0507536
George McCook
Villanova University
Collaborative Proposal: RUI: An Automatic Telescope for Stellar Research and
Training of Undergraduates
ABSTRACT:
A series of collaborative and individual research programs will be carried out among four
astronomers at three primarily undergraduate institutions using the Four College Automatic
Photometric Telescope, a 0.75-m telescope at the Fairborn Observatory site in Washington Camp,
Arizona. Example projects are: frequency determinations of little studied main-sequence g-mode
pulsating stars (including slowly pulsating B stars and gamma Doradus stars); asteroseismology of
short period delta Scuti, beta Cephei, and pulsating white dwarfs (which can be used to probe
interior structure); monitoring of the photometric variability of early type supergiants (whose
luminosities correlate with photometric variability although the underlying cause is not known);
continued monitoring of magnetic chemically peculiar stars (for changes in the rotation rates,
surface activity, etc.); and ongoing photometry of some 15 solar analogs (determining rotation rates,
surface activity, variability, etc., to better understand the past and future activity of our Sun).
These projects include significant involvement of undergraduate students in all aspects of this work,
including data collection, analysis, and dissemination in journals and professional meetings. The
data collected here will also be used in local programs for pre-college students and in teacher
training activities.